Interfacial Monolayer Assemblies for Molecular Recognition

This project is in the area of Analytical and Surface Chemistry and in the subfield of chemically modified electrodes. Professor Kaifer will study the electrochemical and chemical properties of organized monolayer assemblies on electrodes. This research will use a variety of electrochemical methods to study amphiphilic monolayers that have been synthesized on electrode surfaces using Langmuir-Blodgett and self-assembly procedures. Some of these assemblies will incorporate redox couples and their electron transfer characteristics will be probed. The stability of these assemblies will also be examined with the aim to determine potential use of these devices as molecular sensors.